The Gender Chip Project

The Media Working Group is producing a one-hour documentary about a group of undergraduate women at Ohio State University who are pursuing non-traditional paths of study in a variety of technology and science fields. The Gender Chip Project is designed to provide role models and encouragement for girls (ages 14-18) and young adults who wish to enter STEM careers; and to raise general public awareness about the continuing need to develop STEM education and career opportunities for young women. The broadcast documentary will be complemented by distribution of the program with additional material on DVD. The project will also design a website for Guidance Counselors and young women contemplating STEM education. Project evaluation will be conducted by Kathleen Tyner, Lead Evaluator from Hi-Beam Consulting in San Francisco.